Planetary Aeronomy

Hunten, Donald
University of Arizona
AST 99-72967

Drs. Hunten, Sprague, and Bougher will continue a program of research on Mars. Their work addresses two distinct topics: 1) the energetics and dynamics of earth and mars thermospheres, and 2) the measuring and mapping of water vapor content on Mars. The first of these projects, carried out by Bougher, uses general circulation models for Mars and the Earth to compare the solar cycle and seasonal responses for the two planets, and to investigate the wave responses of the upper mesosphere and lower thermospheres of the planets. The second project, carried out by Hunten and Sprague, involves making Mars CO2 measurements that will be used to determine atmospheric dust and total scattering opacity, to correct the observed water vapor abundances, and to investigate diurnal and seasonal variations. This work is supported jointly by the Planetary Astronomy Program in the Division of Astronomical Sciences and the Aeronomy Program in the Division of Atmospheric Sciences.